On-Line Analysis for an Undergraduate Chemical Engineering Laboratory.

This project will add automatic computer control to a laboratory distillation column with on-line sampling and analysis. A continuous refractometer and gas/liquid chromatograph equipped for direct process analysis, sample-conditioning, and meter/injection systems will complete the feedback loop through an IBM PC to an existing computer. The resulting equipment will provide up-to-date instruction in the operation and control of batch and continuous distillation processes.